Collaborative Research: EAGER: Salinity-based selection between sister clades of abundant coastal bacterioplankton

Adaptation to new environments is a fundamental challenge for organisms, including microbes, in expanding their habitat range. It is important to investigate the cellular mechanisms underlying salinity tolerance in coastal bacterioplankton and their different responses to salinity in nature because (i) it will provide fundamental understanding for how microorganisms evolve to inhabit environments with different salinities, and (ii) alterations in coastal salinity are connected to climate change, so the way these alterations affect abundant coastal microorganisms also alters the biogeochemical cycling of, e.g., carbon. The project will examine microbial adaptations to salinity and determine how changes in salinity affect microbial metabolism using two closely related groups of abundant coastal bacterioplankton as model taxa. In addition, the research will continue and expand microbiology Course-based Undergraduate Research Experiences (mCUREs) in high-throughput cultivation and microbial characterization at the Lousiana State University. Sections of freshman biology laboratories will learn how to isolate, characterize, and molecularly identify microorganisms from local aquatic systems. mCURE sections will lead to newly isolated strains, genome sequences, and physiological data, these results will be published with the contributing students as co-authors. The relative success of mCURE sections will be assessed compared to traditional freshman biology sections. mCURE sections will offer unique opportunities for LSU students by creating excitement about research through discovery of new organisms and generating knowledge of the coastal habitats that are essential to the livelihood of the Gulf Coast.

The evolutionary transition between salt- and freshwater environments occurs rarely in microorganisms. In one of the most abundant aquatic groups, SAR11, the transition between salt- and freshwater environments has happened only once: all freshwater SAR11 belong to subclade IIIb/LD12, which has also been found to inhabit coastal environments where salinity varies widely. The first reported isolates of the SAR11 freshwater clade LD12 and a member of the sister clade IIIa from the same region are now available. These pure culture representatives provide a powerful model for experimentally investigating adaptations to new environments in microorganisms, specifically (i) the genomic pathway and regulatory distinctions that arise during the evolutionary transition from marine to freshwater environments, and (ii) the physiological mechanisms that underlie the ecological restrictions imposed on microorganisms by ionic strength in coastal and freshwater environments. Furthermore, because these organisms have distinct differences in metabolic potential, the isolates facilitate testing (iii) the effects of changing coastal salinity on microbial contributions to other biogeochemical cycles, such as that for carbon. The project will test the hypothesis that the relative ionic strength tolerances between the sister lineages (LD12, IIIa) result from fundamental differences in metabolic flexibility at a genomic and regulatory level. To do so it will assess transcriptional and metabolic responses to varied ionic strength for both taxa and measure the distribution and activity of both groups in nature to translate laboratory findings to the field. The research will provide new understanding of LD12 habitat range and insights into how the "freshwater" lineage evolved from a SAR11 common ancestor. The project will also more generally provide important information on microbial responses to salinity changes in coastal systems and the evolutionary paths separating freshwater and marine microorganisms.

This award is co-funded by Biological Oceanography, Division of Ocean Sciences in the Directorate for Geosciences and by Systems and Synthetic Biology, Division of Molecular and Cellular Biosciences in the Directorate for Biological Sciences.